CSR-SMA: CoGenT: Co-Generating Tools for Modeling Next Generation Systems

The CoGenT project aims to make it much easier to sketch new
architectural ideas at the instruction set architecture and
micro-architecture ("block diagram") levels. We have designed languages
for expressing instruction set semantics and encoding (CISL, the CoGenT
Instruction Set Language), and for describing micro-architecture
components, connections, and timing (CASL, the CoGenT Architecture
Specification Language). CoGenT is now completing the language
processors and run-time environments so that we can generate, from CISL
and CASL machine descriptions, functional and timing simulators, and
competent (but not automatically innovative) compilers. Among other
things we are solving the problem of generating provably correct code
generators and register allocators automatically, for the compiler side,
and generating similarly correct simulators automatically on the
simulator side. (Of course correctness is relative to correctness of the
CISL and CASL descriptions.) CoGenT also aims to provide a capable
simulator environment and tools for setting up and running simulation
experiments. Our hope is to revolutionize architecture design
exploration and simulation, with research, industrial, and teaching
impact. We are focusing on getting the maximum functionality implemented
under this award.